Measuring and Modeling Control of Seated Posture

The objectives of this research are to build a instrumented chair to study seated posture stability and to use the measurements obtained from the chair to formulate and validate a model of seated posture control. This research is important since all previous studies have concentrated on the control and modelling of standing posture and gait. In some situations, such as for children with neuromuscular disorders, the control of seated posture is very important. These studies could suggest strategies for surgical, therapeutic and other interventions to help stabilize patients in the seated position.